RIA: Communication Support for Collaborative, Multimedia Applications

This project addresses the issues in providing communication support for building collaborative, distributed applications that involve a geographically dispersed group of users communicating through multiple media (voice, video, text and image). Development of such applications requires support for coordination and temporal synchronization of traffic over related streams. The investigator posits that the transport layer must provide communication abstractions so that a programmer can specify and achieve the necessary concurrency control and temporal synchronization among related data streams. The research involves four components: 1) a token-based mechanism for concurrency control among participants of a multipoint connection. 2) a novel communication abstraction called a multi-flow conversation to allow temporal synchronization among traffic over multiple, independent streams. A conversation may consist of one or more (two-party or multipoint) connections, and enforced temporal synchronization in delivery of traffic over participant connections. 3) incorporation of these abstractions in a transport level protocol called Multi-flow Conversation Protocol (MCP). Additional features of MCP include an out-of-band signaling channel for exchanging control information and an asynchronous interface that allows an application to specify event-triggered actions. 4) demonstration of the viability of the ideas by extending an existing, object-based, distributed group editor to support interactive collaboration using multiple media.